Design of Constraint Languages for Natural Language Processing

This project incorporates two new logical description languages -Feature Logic and Set-Valued Feature Logic - as constraint languages for logic programs. These languages are especially suited for unification-based language processing. Intended future applications are to knowledge representation and computational aspects of situation theory.